EAGER: MAKER: Nebraska Innovative Maker Co-laboratory

This project will advance efforts of the Innovative Technology Experiences for Students and Teachers (ITEST) program to better understand and promote practices that increase students' motivations and capacities to pursue careers in fields of science, technology, engineering, or mathematics (STEM). The project will design, develop and test a Makerspace engagement model that connects geographically dispersed learning communities and mentors participating in Maker activities and spaces to provide informal STEM learning pathways and to broaden participation for STEM activities for youth and their community. The project will establish a dedicated public library-based Makerspace in a rural, relatively isolated and underserved community with close connections to an anchor space at the University of Nebraska-Lincoln that supports open-ended, self-directed learning, idea exploration, technical skills, entrepreneurship, and collaborative projects. The project design will bring together experts from a wide variety of fields (e.g., engineering, textiles, photography, robotics, and STEM education) to provide youth with hands-on opportunities in six focus areas, electronics, textiles including e-textiles with wearable electronics, computers, digital media creation, music technology, and digital fabrication. Youth will select a project and learning pathway based on their interests. Youth will then complete mini-courses and receive certification on the equipment and skills relevant to their chosen project. The expected synergy between virtual collaborative spaces and robotic telepresence will provide opportunities for teams of youth and mentors to collaborate regardless of geographic location and to creatively collaborate, problem solve and innovate. (Telepresence robots are defined as platforms that allow users to perceive that they are operating in another, typically remote physical space via technology.)

This project focuses on using two main strategies; a) virtual collaborative spaces and b) robotic telepresence, to provide rural youth access to the Maker movement. This model will provide a replicable strategy of reaching rural underserved youth audiences within their communities so that they may establish wider learning communities with experts and mentors and thereby fully participate in the maker experience. The use of telepresence robotics for focused one-on-one collaboration and guidance in the Makerspace will particularly help to address the physical needs of such mentoring. Virtual innovative lab spaces will allow youth to develop project ideas and engage in collaborative problem solving. The spaces will be accessible via mobile phone based Head-Mounted Displays. Student surveys, observation, social network analysis, and the systematic coding of interactions between youth and mentors will be used to research the nature of the collaboration, problem solving and innovation that occurs through shared making activities.